ZOO Q -- The Nature Quiz Show for Kids

9552531 Fisk ABSTRACT: Georgia Public Television is producing and evaluating one pilot program and accompanying ancillary material for a series of 30-minute television quiz shows for 8 to 10 year olds. The series would be designed to entertain a home audience while educating them about issues and facts relating to nature and the environment. The primary goals of the project are to increase knowledge about the world around us, to develop a concern for the conservation of wildlife and wild places, and to encourage critical and creative thinking skills in relation to the environment. The television programs and the formal and informal ancillary materials and activities will engage viewers in use and development of science process skills: observation, classification, measurement, prediction, inference, identification and manipulation of variables, interpretation of data, formulation of models, experimentation, construction of hypotheses, and drawing conclusions. The project is being developed in collaboration with the Zoo Atlanta, whose staff will have responsibility for content development, and with educational advisors who will help assure that age- and developmentally-appropriate skills are exercised and the topics have the maximum relevance to elementary and middle school science. The senior producers would be Carol Fisk, a producer with Georgia Public Television and previously a news producer and correspondent in Great Britain and with the BBC in Washington, and Nancy Lebens, a Georgia Public Television staff producer. Cindy Horton, a zoo education program coordinator with Zoo Atlanta, will be the host.